Supporting Teacher-Centered Reform: The Exploratorium Teacher Institute

9454382 Doherty This three-year regional and national teacher enhancement project provides grades 6-12 teachers with in-depth physical science, life science and mathematics content. Regionally, 700 teachers from the San Francisco Unified School District and the San Mateo School District and 20 others are included; nationally the project brings 50 TE-workshop providers, attending as teams, into the program as teacher-leaders. The four integrated levels of the project are: * a 100-hour introductory Teacher Institute where teachers receive instruction science content as well as an introduction to inquiry based learning, * a 90-hour Advanced Theme Based Institute with Follow-up Sessions where teachers grapple with issues of theme- based teaching and implementing standards-based systemic reform, * a program of Leadership Development for Teacher Leaders who design and implement professional development workshops in the Bay area and around the nation, and * follow-up Workshops in all areas plus a Teacher Networking Program to provide an outgoing community of support. Each year of the project 4-teachers who are alumni of the Teacher Institute will leave their classrooms for 1-year and become Teachers-In -Residence at the EXPLORATORIUM. These teachers-In- Residence will work with the EXPLORATORIUM on a long term basis to sustain the Teacher Institutes.